Doctoral Dissertation Research in Sociology

Current research on immigrants' social, cultural, and economic adjustments have been dominated by theories that were developed in studies of immigrants more than 50 years ago. However, there are potentially important differences both in immigrants and in their host countries that utilization of these theories tends to overlook. Specifically, current immigrants tend to be from third world rather than European countries, and current immigrants can receive welfare and assistance benefits that were not available to earlier immigrants. This study will examine Indochinese refugees in France and the United States. The Indochinese experience is generalizable to many other third world refugees and the two nation comparison will highlight the role of governmental policies toward immigrants. Data for the analyses will be obtained from personal interviews, fieldwork, and the analysis of archival records in both France and the United States.